Southwest Texas Teacher Retention and Renewal Collaborative

This five-year Teacher Enhancement project will prepare experienced science, mathematics and technology teachers to mentor novice teachers. This renewal of the mentor and mentoring of the novice encourages both to stay in the profession. Designated as the Teachers As Mentor program (TAM) for South Texas rural and small school districts, sixty mentors will be prepared and each will mentor three novice science, mathematics and technology teachers for a minimum 137 hours each. The phased mentoring plan has each mentor teacher mentoring one novice teacher the first year, two the second year and three the third year. Mentors are supported by project personnel and their local districts for travel to national meetings to participate in the larger professional learning community of mentor teachers. The novice teachers receive the mentoring support plus educational materials and local district support.